Workshop to Assess New Research Directions in Solid Mechanics

This proposal seeks funds to organize a workshop and produce a report on new directions of research in solid mechanics. Special attention will be given to critical areas of importance to national economic well being, public health, safety and national security as well as areas of fundamental scientific impact on solid mechanics. The workshop will be held in fall 2000 with a pre-workshop information meeting to be held at the ICTAM 2000 meeting in Chicago, August 2000. The American Academy of Mechanics will provide the organizational and communication structure. The AAM will invite participation from a wide spectrum of researcher in solid mechanics and related fields. Attempts will be made to involve both younger and senior researchers as well as researchers form diverse backgrounds. A final report will be delivered around late spring 2001 and will be published in a journal as well as posted on the AAM web site.